Oceanographic Technical Services, R/V Endeavor, 2012–2016

University of Rhode Island proposes to support technical services on R/V Endeavor, a 184’ general purpose research vessel operated as part of the University-National Oceanographic Laboratory System research fleet. The proposal requests support for basic services. They will provide one shipboard technician on each cruise of R/V Endeavor to support seagoing research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation.

Broader Impacts
The principal impact of the present proposal is under criterion two, providing infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The support of maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.